Graph Homomorphisms, Stochastic Networks, Discrete Mass Transport

This proposal has three components. The first
describes recent collaboration with Kavita Ramanan (Carnegie-Mellon
University) and David Galvin (postdoc, Microsoft) on Gibbs measures,
with applications to stochastic networks. Motivation
from these and related networks raises new and qualitatively different
questions concerning regions of phase uniqueness and coexistence, which
are being investigated. The second component describes ongoing research with
Sergey Bobkov (University of Minnesota) on
modified versions of logarithmic Sobolev inequalities
and applications to convergence to stationarity of finite Markov chains.
This work is carried over to more recent research activity
with graduate student, Marcus Sammer and colleague, Wilfrid Gangbo
on discrete transportation problems.
In particular, the final component is on developing discrete calculus
to study aspects of mass transport, Ricci curvature, and
understanding connections between various
relavant inequalities -- the transportation inequality,
Talagrand's inequality, the entropy inequality and logarithmic
Sobolev type inequalities. In continuous settings
(such as on R^n or on Riemannian manifolds), there are intimate
connections between the above-mentioned 2nd and 3rd topics; however
these are yet to be established to satisfaction in the discrete
settings of finite metric measure spaces.
Due to the richness in applications, we find development
of such an analogous theory worthwhile and fruitful.

The proposal intends to explore the behavior and performance
of telecommunication (and other data) networks
under recently-suggested models of multicasting and unicasting
on large grid-like structures. Preliminary investigations of the PI and
collaborators demonstrate that the introduction of unicast calls brings
in a certain symmetry breaking into the system, and
lets the system carry a higher load of multicast calls
before the system succumbs to call-blocking due to the influence
of what might be imposed on the boundary of the large (grid-like) region.
Related questions address understanding the spread of information (genetic
or otherwise) and the spread of disease in tree-like and grid-like environment.
These and other research objectives outlined in this proposal are of
interest to researchers in analysis, combinatorics, probability,
information theory, statistical physics and the theory of computing.
One of the main motivations for the PI comes from computational and applied
problems of combinatorics and discrete probability. An overarching
theme of the proposal is also to explore in depth
the role of information theoretic techniques in discrete probability
and computing. The PI fully hopes his extended collaboration
with his coauthors in these disparate research topics contributes to the
cross-fertilization of mathematical ideas, modeling, and techniques,
while promoting the educational component of research.